An Experimental Test of the Strong Bell Inequalities

Professor Fry will mount a test of a previously untested strong "Bell's inequality". This experiment will be a true realization of the Einstein-Podlosky-Rosen famous "thought experiment" in which angular momentum correlations between two spin one-half mercury atom will be measured.